EAGER: Building a ROS Education Ecosystem

Oregon State University proposes to develop and evaluate a model for making modern robotics software techniques, platforms, and models accessible for education. The Open Source Robotics Foundation's (OSRF) Robot Operating System (ROS) is a widely used software architecture for academic robotics research.

The project will:
1. develop and curate open-source curricular materials that will allow educators to more easily deploy ROS in their classes at all levels;
2. ensure that these materials are accessible to both the students in a formal education setting and also to non-traditional learners in an informal setting;
3. provide concrete advice and guidelines for overcoming the common logistical problems of deploying and running a robotics class with ROS;
4. work with robot retailers to develop a "classroom pack" of hardware and software that integrates with the curricular materials to reduce the overhead of starting a new class using ROS; and
5. start to build a community of educators and learners, at all levels, invested in using ROS in their classes and other educational activities.